Program Obfuscation: Foundations and Applications

The proposed investigation is a 3 year single investigator proposal involving an academic lead institution (MIT) and participation by personnel from a technology company (IBM).
The intellectual merit of the proposed research is that it will broaden our foundational understanding of what can be done with code in contrast with black box access to code.
The broader impact of the proposed research will be through the PI and senior personnel disseminating the knowledge and understanding gained in journal publications, public conference and workshop presentations, and teaching graduate level and undergraduate level courses in theory of computation, cryptography, and network security. Finally, two members of the research team, including the PI, are women.